NYI: New Approaches to Engineering Design: Controlled Chaos and Computer Automation

This project explores two new approaches to engineering design. Each of these threads is composed of synergistic subprojects; these subprojects combine analytical mathematics, numerical simulation, symbolic reasoning, and physical experiments. The first approach is to actively use chaos to improve the designs of various engineering systems. One example of this is causing gases to burn more effectively by induction of chaotic mixing in a combustion chamber. A small, well-placed obstruction can interact with the inflow and with the chamber's geometry to cause large effects: chaos's symptomatic ``sensitive dependence on initial conditions.'' These effects are tested both experimentally and with computational fluid dynamic simulations. Another example is the use of chaos to broaden the capture range of a phase-locked loop circuit. The second approach to improving engineering design is through computer automation. The ultimate goal of this endeavor is a suite of programs that explores different high-level analysis and design paradigms. Such tools would not only streamline an engineer's problem-solving task, but actually amplify creativity. The first step is a program that autonomously constructs mathematical models from information about a system, presented in a variety of forms and formats: measurements made directly on the physical device; a user's observations described to the program in varying degrees of precision, symbolically or graphically; partial models and hypotheses suggested by a user; and general mathematical theory that is encoded in the program's knowledge base.